Mathematical Sciences: Applications of Homotopy Theory

Professor Bendersky intends to use the machinery of elliptic genera to study geometric problems. He plans to study the problem of vector fields on Spin manifolds from the point of view of elliptic genera. He also plans to continue his investigation of the implications of the rigidity of elliptic genera on the Brown-Kervaire and Atiyah invariants of Spin manifolds with circle actions. This project will also study the interaction of the unstable Novikov spectral sequence and the unstable Adams spectral sequence. Using recent work of Davis and Mahowald, he plans to compute many of the James numbers. Both parts of this project involve highly intricate algebraic constructions which lend themselves, surprisingly, to understanding the geometry of some very natural geometric objects, namely the Spin manifolds.//